Acquisition of Tissue Culture Sterilizer

Funds are requested for a tissue culture sterilizer. This instrument will be used for sterilization of a variety of materials used in daily cell culture work. This instrument will support research in molecular mechanics of eukaryotic organisms, ontogeny of immune responsiveness, the development of capillaries, and the interaction of growing axons with their target tissue.